II-New: A Computational Infrastructure for Scalable Transactional Memory Abstractions in Managed Languages

This proposal supports the acquisition of an Azul Vega 3 compute appliance
for research on developing an open-source general-purpose transactional
infrastructure for high-level managed languages. This appliance is equipped
with hundreds of processor cores, substantial memory, and bandwidth
availability. The cores compute in a flat SMP configuration, simplifying
programmability and management. The appliance has a number of novel
features including hardware support for concurrent garbage collection, and
optimistic lock elision that provide critical building blocks for efficient
transactional memory (TM) support. The project's research agenda is to
explore new approaches to scalable parallel program construction that
exploits underlying hardware primitives that mask or mitigate critical
bottlenecks that have thus far hampered effective scalable software
transactional memory systems.

The project will use the novel features of the Azul appliance to (i) explore
new language abstractions with special focus on scalability of transactional
applications; (ii) understand how primitive support for garbage collection
and transactions influence algorithm and application development built using
these abstractions; (iii) examine the impact of these mechanisms on
compiler and runtime design; and (iv) develop a large number of benchmarks
and workloads to better understand TM performance characteristics.

This project is part of a larger NSF-funded effort to catalyze TM research,
which in turn is a key technique to improving software development for
general-purpose parallel computers. Widespread adoption of new scalable
concurrency abstractions such as transactional memory is an essential
component in the technology roadmap of major industry players, and the focus
of much attention in academia.